Nonlinear Repetitive Control

High-speed diamond turning of eyeglass lenses, noncircular machining of camshafts and pistons, high-speed scanning and vibratory probing in atomic force microscopy (AFM), and metal rolling are examples of industrial processes which can benefit from repetitive control algorithms. Motivated by the nonlinearities in optical turning and AFM control, this research project addresses basic challenges in nonlinear repetitive control. In addition to research on basic theory involving the existence of periodic motions, stability results, and design methods, specific nonlinear problems in optical turning and AFM control are addressed. The project involves collaborations with DAC Vision, Inc. to understand the diamond turning of polycarbonate eyeglass lenses. The process requires quasi-periodic tool trajectories and suffers from significant actuator nonlinearly. Following the initial investigations into the nature of nonlinear periodic motions in single-input single-output (SISO) repetitive control systems, extension to MIMO systems, possible connections with normally hyperbolic manifold theory, and the onset of chaos in nonlinear repetitive control will be investigated. Modeling and simulation of the DAC Vision diamond turning process will be accomplished in this same period followed by control design and implementation of controllers on DAC's machines. Instructional development in UCSB's graduate control lab in collaboration with Magnetic Moments, a supplier of educational control experiments is also a part of this project. The PI will incorporate repetitive control design into this teaching lab for the outbalancing of a magnetically suspended rotor. Later in this program, repetitive control problems in atomic force microscopy (AFM) are to be addressed with the aim of improving the imaging speed of these devices. The specific problem to be addressed is the control of AFM's in tapping mode. At high tapping and scan rates, AFM's can enter into chaotic motions that degrade image quality significantly. One of the aims of this research is to control the onset of chaos and thus improve system performance.